Collaborative Research: AF: Information-Computation Tradeoffs for Statistical Tasks

Modern data analysis often faces a fundamental tension: more data can improve accuracy but using that data optimally may require more computation than is feasible. In many important tasks in machine learning, statistics, and data science, the best possible statistical procedures appear to require exhaustive search, while all known efficient algorithms require substantially more data or achieve weaker guarantees. This project studies whether these gaps are inherent. By developing mathematical tools to identify when efficient algorithms cannot reach information-theoretic limits, the project will clarify the capabilities and limitations of modern learning and inference methods. The results will contribute foundational insights for computer science, statistics, and machine learning, while supporting the dissemination of new ideas through workshops, tutorials, course materials, and mentoring activities.

At its technical core, the project will develop a unified theory of information-computation tradeoffs for statistical tasks. The research will establish lower bounds in several restricted but broad models of computation, including Low-Degree Polynomials, Statistical Queries, Polynomial Threshold Functions (PTF), and the Sum-of-Squares (SoS) hierarchy. The project has three interrelated thrusts: developing stronger evidence for tradeoffs through PTF and SoS lower bounds; understanding when lower bounds transfer among computational models; and addressing longstanding open problems beyond current paradigms. Target applications include Non-Gaussian Component Analysis, Gaussian Additive Models, Planted Clique, robust and private statistics, and deep learning. Together, these thrusts aim to identify the structural reasons behind information-computation tradeoffs and to develop new mathematical tools for both proving computational barriers and designing improved algorithms.